Workshop: Uphill Battles in Language Technology

While recent approaches to Natural Language Processing (NLP) based on
machine learning from large quantities of data have delivered valuable
technology, this success has obscured earlier, more visionary goals of
getting computers to understand stories, to engage in natural,
cooperative dialogues with people, and to translate text and speech
fluently and accurately from one human language to another. As such,
this workshop highlights the value of bringing these early visionary
goals back into view.

The workshop features established researchers who carried
out early work in a major sub-field of speech and language processing
engaging in a moderated public dialogue with younger researchers
involved with significant new ideas and/or methods. The workshop is
organized into four sessions, each with a moderator and invited
speakers, on the topics of Dialogue and Speech, Natural Language
Generation, Text Understanding, and Grounded Language. Dialogue in
each session is enriched through questions solicited beforehand from
prospective attendees, as well as impromptu questions from the
audience. The workshop includes graduate student scribes who
collaborate to deliver a summary of each session, and a poster session
highlights the students' research. In addition to the workshop
proceedings, the workshop's outcome is a public report based on notes
contributed by the speakers and the session summaries produced by the
team of student scribes.